Effects of Climate Change Variables on Microbial Autotroph-Heterotroph Carbon Flux

Phytoplankton in the surface ocean are responsible for roughly half of all photosynthesis on the planet. Much of the organic material created by these photosynthetic organisms is ultimately consumed by diverse marine bacteria with differing preferences for specific types of chemical compounds. This project investigates how climate change (temperature and CO2) might alter the types and amounts of organic compounds produced by different species of marine phytoplankton and the types and amounts of compounds transferred from phytoplankton to marine bacteria. Shifts in organic compounds transferred to bacteria could alter the distribution of bacterial species in the ocean, their growth rates and efficiencies, and flows of energy through the global ocean. This project helps scientists better understand the effects of climate change on marine ecosystems. Two graduate students and a postdoctoral researcher are supported by the project, receiving interdisciplinary training in biology, chemistry, and ocean sciences. Summer research internships in the PIs’ laboratories are offered to AP Biology students enrolled at Cedar Shoals High School in Athens, GA, a school that serves a diverse social and economic community.

Much of the bacterial secondary production in the surface ocean is supported by rapid uptake of labile metabolites released from phytoplankton, either directly through excretion and diffusion or indirectly through lysis and predation. This project investigates the effects of two climate change variables (temperature and CO2) on the metabolite pools produced and released by three model phytoplankton species (a diatom, a coccolithophore, and a cyanobacterium) and assesses changes in the composition and fate of metabolites transferred to bacteria. Phytoplankton species are being grown axenically at two different temperatures and CO2 concentrations in a factorial design and endo- and exometabolite composition is determined using NMR. A suite of phytoplankton physiological characteristics is measured and evaluated in the context of metabolite composition. Experiments with heterotrophic bacteria (either model bacteria or natural bacterial communities) are being conducted to assess the effects of climate change variables on metabolite transfer from phytoplankton to marine bacteria. In the first experiment type, bacteria are co-cultured with the phytoplankton at different temperatures and CO2 concentrations, and changes in bacterial gene expression and metabolite concentrations are used to assess shifts in the composition of metabolites transferred. In the second type, bacteria are grown on phytoplankton metabolite pools produced at different temperatures and CO2 concentrations in high-throughput bioassays, and changes in bacterial traits (growth rate, carrying capacity, growth efficiency) resulting from the different climate scenarios are used to indicate changes in metabolite quality. Knowledge of how the heterotrophic processing of phytoplankton metabolites might shift in response to climate change allows better prediction of Earth's future carbon cycle.